Frames as codes and classifiers

Bodmann
0807399

The mathematical description of redundant linear
representations of analog signals is called frame theory, and it
is central to open problems in many fields of applied mathematics
such as approximation theory and numerical as well as statistical
analysis. In short, a frame is an (over)complete set of vectors
that gives stable expansions. Previous works have measured the
error correction capabilities of frames with means derived from
geometric or functional analytic formulations. However, for
purposes of signal communication and statistical analysis,
information theory should provide the guiding principles for
optimal design. The goal of the project is to close this gap by
combining frame and information theory. Applying
information-theoretic optimality criteria to frame design is
expected to have a significant impact on all tasks that involve
analog signals being transmitted or interpreted in the presence
of noise. The investigator seeks to characterize and construct
linear signal encoding and decoding maps for two specific areas
of applications: Find frames with associated encoding and
decoding maps that achieve the information-theoretic optimum for
(1) error correction of digital streaming media and (2)
classification of signals in noisy microscopy images.

Digital signal transmissions have revolutionized our daily
lives, from cellular phones and Voice-over-Internet-Protocol
telephony to high-definition television and other streaming
media. The use of digitization helps suppress distortions
typical for analog devices and allows seemingly faultless
communication by incorporating redundancy, that is, repetetive
information. However, at times the digital nature of error
suppression leads to artifacts that do not resemble the graceful
degradation we recall from analog transmissions. The reason for
this deficiency is that the general-purpose digital communication
protocols are not well-adapted to the properties of the encoded
analog signal. The investigator aims to restore the possibility
of graceful degradation to streaming media sent across the
internet, or to wireless communications in unreliable
environments. The optimal design of analog-digital encoding has
similar implications for the decoding of analog signals, such as
the extraction of information from microscopy images in biology.
The reliable monitoring and classification of cell constituents
in microscopy images is essential for measuring physiologic
responses in cells (such as the stages in the cell cycle) and for
detecting anomalous behavior that occurs as a result of disease.
Classifying cell behavior is relevant for the evaluation of drugs
with high-throughput assays, including the development of
cancer-cell growth inhibitors.